IGMS: Optimizing Supply Networks and Re-Entrant Manufacturing Systems in the Semiconductor Industry

The PI will perform research on supply networks and scheduling of re-entrant manufacturing systems while in residence in the Technology and Manufacturing Group at INTEL Corporation. While transferring theoretical results and paradigms of nonlinear control into large scale industrial applications, a major objective is to develop in-depth knowledge of the practical needs, constraints, and objectives of industrial operations, sufficient for effective future collaborations with representatives from industry, business, and industrial engineering faculty, and to optimally prepare future undergraduate and graduate students.

The technical focus is on problems of immediate interest to the semi-conductor industry. As a roughly $100B business in the US alone, this industry is characterized by capital intensive manufacturing plants and
short product life-cycles. Together with rapidly changing demands and prices, this framework promises a particularly high return on investments to optimize operations. The first problem is to optimize the management of the global supply networks of the semiconductor industry. This includes phasing in/out changing products, using facilities that are distributed around the globe, avoiding overproduction and hedging against fluctuations in demand and production. A key objective is to connect commonly used financial with optimal control. The second problem is to optimize the scheduling of re-entrant manufacturing systems. A major theoretical problem is to formulate an analogue of the dynamic programming paradigm for such systems without a distinguished direction of signal flow.

This project will immediately impact the many courses taught and seminar series organized by the PI. He will also quickly communicate his insights to the larger communities in mathematical control and undergraduate
education. This IGMS project is jointly supported by the MPS Office of Multidisciplinary Activities (OMA) and the Division of Mathematical Sciences (DMS).